An Electron Paramagnetic Resonance Spectrometer to Advance Research in Chemistry, Archaeology and Physics

The Chemistry Department at Northern Arizona University in conjunction with faculty in Physics and Anthropology seeks to acquire an Electron Paramagnetic Resonance Spectrometer for research purposes. The objectives are to increase Native American participation in chemistry/physics research and to introduce advanced analytical techniques to faculty and Native American students interested in the archaeology of the Southwest. The proposed research is designed to: 1) Explore host-guest inclusion chemistry using a variety of paramagnetic organic radicals and hosts such as cyclodextrins and cyclophanes; 2) Study the migration and speciation of paramagnetic metal ions in clays; 3) Study the detection of organic and inorganic species in coprolites and the determination of the thermal histories of food grains; 4) Investigate the concentration and properties of polarons in conducting polymers; and 5) Investigate Si surfaces, under high vacuum, and explore the behavior of these surfaces when coated with a variety of metals.